MRI: Development of a Multi-Modal Optical Coherence Microscope

0216403
Izatt
Over a three year instrument development program, a new generation of noninvasive quantitative three-dimensional microscopy technology specialized for longitudinal (nondestructive) studies of development and gene expression in small animals will be developed. This instrument will integrate recent developments in optical coherence tomography (OCT) and optical coherence microscopy (OCM), which employ cutting-edge ultrahigh-bandwidth optical communications technologies for micron-scale resolution non-contact imaging in translucent materials including living biological tissues.